Engineering Research Equipment Grant: Computer Numerical Control Milling Machine

This equipment will allow the principal investigator to continue his research in the enhancement of the technology for machining cylindrical bodies with compound curvatures and in the development of a viable system for integrating orthopedic footwear design features and machining requirements.